Conference: (March 4-6, 1991) "The Optical Computing TopicalMeeting"

This grant is for support of a conference to be held (March 4-6, 1991). The Optical Computing Topical Meeting will consist of invited papers and both oral and poster contributed papers in the areas of research in materials, devices, architectures and algorithms relevant to optical computing. Research topics include: Optical interconnections and buses for computing; Optical and photonic computing systems, architectures, models and algorithms, digital or analog; Hybrid optical/electronic processors; Optical "neural" processors, including optical associative memories; Optical memory; Massively parallel architectures for optical implementation; Spatial light modulators and other devices for optical computing; Nonlinear optical phenomena of potential use in computing; Nonlinear optical, electro-optical, and opto- electronic components; Areas of application of the above components and processors; and Fundamental physical and computational properties relating to the capabilities and limitations of optical computers.